CAREER: MEMS Reconfigurable Filters for Multi-Band Low-Power Radios

This CAREER proposal aims at the development of a single-chip reconfigurable MEMS filter platform
for multi-band, multi-standard radios through fusion of acoustoelectrically amplified nano-mechanical
filters and 3D tunable components. Reconfigurable filters can greatly enhance the performance and
reduce the size of RF front-ends, and as such have received great attention for effective and low-power
processing of the frequency spectrum. Despite their great promise, lack of integration and narrow
frequency coverage of current reconfigurable filters continue to hinder their use in practical applications.
In addition, current technologies have failed to reduce the size of filters without deteriorating critical
performance metrics such as loss, power handling and termination impedance. To-date, a versatile and
reconfigurable filter array platform does not exist in monolithic form, an important problem that has
remained unsolved despite major advancement in MEMS. This proposal tackles the fundamental issues
related to reconfigurable filter arrays and proposes a novel technique that offers frequency, bandwidth and
amplitude tunability through integration of narrow-band acoustic filters with tunable lumped filters.
These are believed to be the most prominent steps toward the realization of a single-chip multi-band lowpower
radio.

Intellectual merits: The proposed work explores a new approach to developing integrated reconfigurable
filters with wide tuning range and reduced loss. This new approach relies on the acoustoelectric effect, a
phenomenon caused by interactions between electrons and phonons. Using this effect, which is most
effective in nano-scale, a new class of nano-mechanical acoustic filters with potentially negative loss (i.e.
positive gain) will be developed. This will yield new opportunities for acoustic devices and
instrumentation. In addition, using advanced 3D micromachining techniques microscale tunable lumped
components with unparalleled Qs exceeding 150 and wide tuning range will be developed. The high-Q
tunable passives will be utilized to reduce parasitics of acoustic filters and assist in tuning their frequency
response. The PI will leverage her prior work on high-Q passives and micro-fabrication techniques
towards this proposed research. Along with the experimental work, the proposed research aims to
advance the scientific community’s understanding of the physical phenomena that govern the
performance of the proposed MEMS arrays and new technologies that overcome these physical limits.

Broader Impact: The proposed research enables on-chip reconfigurable high-Q filtering, eliminating
many of the redundant components in RF transceivers, which results in drastically smaller form factor and
reduced power consumption. In a cellular phone, elimination of only one off-chip fixed-frequency filter
as well as the associated matching network using the proposed technique reduces the transmit printed
circuit board area by more than 75%, while lowering the bill-of-materials. As such, the proposed research
will have transformative impact on telecommunication. The reconfigurable MEMS filters developed in
this CAREER program could have far-reaching applications beyond wireless communication ranging
from medical ultrasonic imaging to non-contact sensing. In addition to the outlined research effort, an
integrated educational program will be established which aims to educate students through direct
participation in the research activities. The outreach efforts of this project are aimed at promoting
diversity among engineers and scientists and specifically increasing the proportion of women in
engineering to a healthy level (>30%). To reach this goal and to motivate and educate students, the PI
will pursue the following avenues: (1) Educational outreach through School of Education to high school
teachers to observe the classroom dynamics in the 6th and 7th grades where female students start to lose
interest in engineering as well as summer outreach programs to expose high school students to the field of
MEMS by involving them in the proposed research activities; (2) Involvement of undergraduate students
from underrepresented groups in PI’s research and educational activities; (3) Creating a multi-disciplinary
scientific learning environment for students and training several doctoral students; (4) Introduction of a
new graduate course on RF MEMS. Students will gain research experience and discover real world
applications of RF MEMS through team projects in a laboratory setting; (5) Dissemination of the
scientific results of this research.